The Impact of Tests and Testing on Teaching and Learning in Science and Mathematics

The proposed study will investigate the quality, validity, and significance of text-embedded and high-stakes science and mathematics tests and accompanying test preparation materials, as well as their impact on instruction and learning. The study will document the degree to which the relatively hidden text- embedded assessments, typically produced by textbook publishers to supplement textbooks, as well as state-mandated and national standardized tests and test preparation materials affect what is taught, how it is taught, what is learned, how it is learned in science and mathematics across the county. Particular emphasis will be given to the extent to which the form of questions in these assessments influence student thinking in favor of facts and recall over higher order thinking processes. The study will focus on the effects of standardized test use on learning in large school districts, with a specific focus on underprivileged, minority, and special needs students, and on the potential effects of test use on differences in science and mathematics learning of boys and girls. The research will also examine relative congruence of these tests and test-related materials vis-a-vis current efforts to deepen and broaden science and mathematics curricula in order to develop problem posing, exploratory, and analytical attitudes. $60,000 in direct cost sharing equals 7% of the NSF award.